Undergraduate NMR Facilities

The purchase of a 60 MHz NMR allowed the implementation of the development plan which introduces the routine use of NMR spectroscopy over a broad combination; of courses. The development plan has two objectives. First, the instrument gives students a practical familiarity of NMR in its traditional analytical applications. Second, the instrument is used to teach fundamental concepts of spectroscopy, strucutre determination, thermodynamics, kinetics, structural isomerism, magnetic properties and exchange mechanisms in experiments where NMR spectroscopy provides the best means of obtaining experimental data. These objectives are implemented by a program of experiments introduced into courses of organic chemistry, physical chemistry, chemical instrumentation, advanced organic chemistry and advanced inorganic chemistry as well as use in undergraduate research projects. The project is designed to provide students with a solid understanding of NMR theory and practice, while providing improved ability to investigate many important chemical phenomena. The institution is matching the NSF grant with an equal amount of funds.